Mathematical Sciences: Group Project in Probability, Statistics and Computational Molecular Biology

This group of investigators will be supported under the Mathematical Sciences Research Group mode of funding. The group is involved in the formulation and solution of analytical problems in molecular biology and genetics. In particular, the group will emphasize the development and application of mathematical, statistical and computational methods for the analysis of DNA, RNA and protein sequences. The research is organized into four main areas. (1) In the development of mathematical tools for molecular biology, the investigators will study protein sequence analysis, physical mapping, and statistical tests for pattern analysis. (2) Computational algorithms will be developed for database searches, sequence alignment, and sequence assembly. (3) Ongoing work in mathematical population genetics includes studies of genealogical trees, the finite sites models and genealogy and selection. The group will also analyze some statistical problems in molecular evolution. (4) The group will continue to study the stochastic properties of optimal sequence comparisons. This work is closely related to the Chen-Stein method of Poisson approximation, which has application to many probabilistic problems. Other work focusses on random permutations an change point problems. This Mathematical Sciences Research Group will investigate problems at the interface of molecular biology and genetics, statistics and probability, and computation. The investigators on this grant interact with each other and with many biologists. The problems investigated by this group are directly motivated by biological considerations, and mathematical and computational solutions of these problems will impact all the fields involved.